ITR/SY: QoS-Aware Execution Environments for Multi-tier Network Services

Modern, componentized Internet services allow server consolidation
by sharing common service components.
Such sharing can potentially reduce the installation cost,
space, and energy consumption. However, to date, services
are seldom shared across server applications to avoid
possible interference between them. Service providers often run
multiple instances of shared services, one for each frontend
service. The only benefit gained thus far, from the deployment of
multi-tier services is that new services can be composed quickly using
existing service components. Since these service
components may execute on different machines, each optimally configured
for its services, multi-tiered services tend to be more
scalable than monolithic counterparts.

The proposed research aims to address the shortcoming of current
OSs in executing multi-tiered services. We will focus on OS extensions
that correlate and trace service activities across the tiers of a
multi-tiered server farm. We will develop mechanisms for online
classification of activities (e.g., premium vs.~basic service classes),
as well as mechanisms that allow system administrators to insulate
(performance-wise) different service classes even when the
activities of different service classes may overlap and
share backend services.

The same OS mechanisms that are used to manage multi-tiered
services can be used to analyze the interactions between different
tiers and the interferences between different service classes.
We will show that a combination of service interaction analysis
and service policing minimizes performance invasiveness
between services/applications.
We will also investigate how to improve insulation between
services in this environment.
We will explore how service implementations may take
advantage of an improved OS infrastructure for multi-tiered